Acquisition of an Ultra High Resolution Spectrometer System for Atmospheric Science

This grant acquires an ultra-high resolution Fourier transform spectrometer (FTS) to study gas phase compounds. The instrument, used jointly by researchers in the Department of Physics and Astronomy and the Department of Chemistry and Biochemistry at the University of Denver, develops and implements FTS methods to measure atmospheric gas phase compounds at remote field sites. In addition, the investigators explore new research directions, including evaluating and understanding deployment issues involved in atmospheric remote sensing; acquisition of solar absorption spectra; gas cell absorption studies of molecular species; analysis of synthesized chemical substances coupled to electronic and molecular absorptions; and identification of chemical reaction products. The researchers have historically incorporated students in their research; accordingly, the additional FTS instrument is an instructional tool for graduate and undergraduate training in gas phase spectroscopy at the University of Denver. ATM-9724529